Strategies for Designing Transition Metal-Based Catalysts: Use of Polymer Tertiary Structure to Control Inner and Outer Sphere Coordination Environments

The focus of this research is to develop methodologies for the preparation of chiral metallic cavities for catalytic synthesis. The concept is to build, via template methodology, a polymeric cavity into which a metal can be placed and used as a chiral catalyst. In this methodology, both the outer an inner sphere environments of the metal catalyst shall be controlled. In the education portion of this grant, the overall goal is to integrate organic and organometallic chemistry in courses, research and seminars. Students will write papers and give lectures on current literature topics which cover these two sub-disciplines. The ability to catalyze reactions efficiently provides the basis for transforming readily available organic materials into numerous useful products. For medicinal products, one additional feature is the control of chiral topology. This research project supported by the Organic Dynamics Program will address this issue by designing chiral polymeric cavities into which chiral metal catalysts can be tethered. A variety of test examples will be used to demonstrate the concept utility. The education portion of this investigation will focus on the integration of Organic and Organometallic chemistry. This will be done by course work, seminars and research at both the undergraduate and graduate level